Facilities Grant for the Curation of the Lepidoptera Collection at The Milwaukee Public Museum

The Lepidoptera Collection of the Milwaukee Public Museum (total holdings of 195,000 specimens) has grown significantly over the past decade through acquisition of several significant donated collections. The Niedhofer Collection (95,000 specimens, 30,000 from Brazil) and the Sieker Collection (17,000 Neotropical specimens), as well as several smaller donated collections, are relatively inaccessible and have not been integrated with the rest of the Department's holdings. Dr. Allen Young, Curator of the Collection, proposes to integrate these collections into one comprehensive resource, and to improve the overall curation of the collection. The donated collections represent endangered habitats or areas that have already been developed for human use. Making these specimens accessible to scientists would have a significant impact on current research on biodiversity, global climate change, biogeography, evolutionary biology, ecology, and conservation biology in tropical regions. Supporting the growth and improvement of natural history collections such as this are essential for future generations of biological research.